Microcontamination Reduction in Plasma Processing Through Charge State Modification

9361373 Hazelton Plasma processing has moved to the forefront of integrated circuit (IC) fabrication technology. Contaminants continue to plague the industry being responsible for more than 50% of the yield losses. These particles will also act to limit the feature density on the IC wafers. Advances in cleanroom technology have resulted in the plasma processor being the main source of microcontaminants. Particles in the discharge have been observed to congregate in electrostatic traps near the wafer. The precipitation of particles from these traps is a major source of contamination. We propose to actively clean the particle traps. The energy of an electron beam incident on the particles can be tuned to either increase or decrease the particles' charge state. This disrupts the electrostatic trap confinement allowing the particles to be removed.